Crystal Growth by a Modified Czochralski Process

The goal of this research is to improve the quality of bulk crystals by study and modification of the temperature field at the crystal growth front. A modified Czochralski process which will incorporate a heater immersed in the melt just below the crystal growth will be studied experimentally to obtain a flat growth-front profile which is expected to provide bulk crystals with reduced defects. Primary studies at the PI's facility will be carried out with NaNO3, and the information learned transferred to the growth of other materials such as GaAs and InP, in collaboration with AT&T Laboratories.